Electron Emission Characteristics of Sputtered Lanthanum Hexaboride (Materials Research)

A new method of coating the filaments from which electrons are emitted is proposed. These sources are used in many areas. This new method, sputtering of LaB6, might make longer lasting cheaper electron sources.